Peer-to-Peer Architectures for Federated Search of Complex Digital Libraries

Abstract

Proposal Number: IIS-0240334
Institution: Carnegie Mellon University
Principal Investigator: Jamie Callan

This proposal applies peer-to-peer architectural approaches to the issues associated with federated search of digital libraries. The problem of integrating large numbers of disgital libraries into a coherent, federated system is a fundamental goal and challenge for present day digital libraries research efforts. Large-scale integration in a meaningful way involves overcoming the issues of heterogeneity of query languages, resource description and service descriptons . Peer-to-peer architectures differ from earlier approaches which attempt to enforce single ,uniform approaches by adding networking components with translation capability between difference scchemas. Peer-to-peer architectures have the consequence of removing control from single organizations, but at the same time result in increased complexity and potential for congestion. This project is a coordinated effort between researchers at Carnegie Mellon University and the University of Dortmund, Germany.